Conference Planning for the ERC and I/UCRC Annual Meetings and the I/UCRC Evaluators Semi-Annual Meetings

This award provides funding in FY 2006 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC) and the Industry/University Cooperative Research Centers (I/UCRC) Programs.